United States Workshop on Rice Genomic Sequencing held on April 8, 1998 at the United States Department of Agriculture in Washington, DC

The International Rice Genome Sequencing Initiative has been formed to promote collaboration in sequencing rice genomic DNA. The proposed workshop will address the U.S. response to this initiative. As a member of the Graminae and a crop plant, a wealth of fundamental information about important aspects of plant biology can be learned from the genomic sequence of rice. Rice is a model for learning about yield, hybrid vigor, single and multigenic disease resistance. Different races of rice are adapted to a wide variety of environmental situations, from tropical flooding to temperate dry land, so it is a model for real life adaptive responses. Because it shares colinear genomes, rice is a key to knowledge of the genomic organization of the other grasses. Comparison of the sequence of the dicot, Arabidopsis thaliana, with that of rice, a model monocot, will tell us what genomic structures these two different groups of angiosperms have in common and how they differ. The purpose of the proposed workshop is to promote and coordinate U.S. activities in rice genomic sequencing with the International Rice Genome Sequencing Initiative. Topics to be discussed would include: 1) Inform interested parties about decisions taken on behalf of the International Initiative and to provide a level playing field for all parties interested in rice sequencing. 2) Plan U.S. response. 3) Engage and help U.S. funding agencies in planning their activities.